Establishing an Archival Journal for Engineering Education

This purpose of this effort is to support the American Society for Engineering Education (ASEE) in establishing and perpetuating a scholarly journal dedicated to research in engineering education. The award is for $223,198. Establishing a high-quality, peer- reviewed journal dedicated to encouraging scholarly research in engineering education and disseminating that research widely will make a lasting contribution to the discipline. By publishing current research on curriculum reform, faculty development, and other areas of vital concern, this journal will help to improve the quality of engineering education in the United States.